Group Travel to CP Violation Conference; Chateau de Blois, France; May 22-26, 1989 (Physics)

This award will support, in part, the travel of about 16 younger American physicists, who are actively working in the area of CP violation, to a conference on CP violation. It is to be held in Blois (France) May 22-26, 1989. The conference is set to commemorate the 25th anniversary of the CP violation discovery in kaon decays and will deal with the prospect of new experimental results, an update on the theoretical studies, a presentation on future initiatives and the role of CP violation in the early universe.